Next-generation algorithms for network layout

Nearly every single major telecommunications concern in the United States, as well as many abroad, has a group responsible for network layout algorithms. This is a growing trend, spurred by the large investments needed to upgrade and expand networks, especially in the case of ATM technology --a single large switch can cost millions of dollars. Typically, work focuses on individual problems as they arise, and the resulting algorithms (whether completely heuristic or based on thoroughly grounded techniques) heavily depend on many particular details of the problem at hand. A similar approach is used by researchers at universities. Other than completely general optimization techniques --such as general purpose integer programming codes or heuristics such as simulated annealing-- which usually do not prove satisfactory, no successful common approach exists. However, network layout problems of all flavors do share many common components. Our views on this matter were spurred by our experience with practical ATM layout problems. In ATM network layout several interrelated subproblems arise. There is a transmission system subproblem: on every link enough capacity must be installed to carry the traffic routed on it. There is a similar switch sizing subproblem (except that capacity is installed at nodes, not links). There may be a further subproblem concerning allocation of terminations at switches, again of a similar nature. Finally, different types of routings may be allowed, for example, requiring survivability. An algorithm for a complex problem of this type may therefore need to handle each subproblem well (in case that subproblem is cost-dominant in a particular application) but would also need to integrate the different components into a coherent single unit (for example, the edge transmission system subproblem will interact with the switch sizing subproblem). Network design problems can be classifed as mixed-integer programs: the y involve variables that must take integral values (e.g. the number of transmission systems to install in a particular link) and also continuous variables (mainly traffic routing decisions, which are effectively modeled without requiring integrality). From a computational viewpoint these problems are typically very difficult. Purely heuristic algorithms are notoriously unreliable in terms of the quality of the solutions they provide. At the other end difficult network design problems routinely trounce high-performance general-purpose integer programming algorithms. See problems "dano3mip" and "danoint" of the MIPLIB family (http://www.caam.rice.edu/~bixby/miplib/miplib.html) and other problems in the PI's previous work. A final argument in favor of a general-purpose network design algorithm, concerns one way in which network design is used in practice. No network planner will commit to an expenditure of several million dollars on the basis of a single run of an optimization algorithm, no matter how good a track record this algorithm has. Typically, an algorithm would be used in the context of a study where a design tool is run repeatedly. Here it is crucial to get fast, good-quality estimates. The research supported by this award focuses in developing a generic network design tool. We plan to develop several fairly independent components of such a tool, principally: * Fast, approximate algorithms for continuous linear programs arising in network layout problems, in particular, parallelizable versions thereof for a shared-memory environment. * General "cutting-plane" techniques for the mixed-integer programs we are interested in, and * Fast rounding heuristics to quickly obtain good feasible solutions.